Conference: Quantum Technologies for the Geosciences

Quantum information science (QIS) is rapidly advancing under the National Quantum Initiative with transformative progress in quantum computing, quantum sensing, and quantum networking. While these technologies are poised to revolutionize multiple sectors, their potential impact on the Geosciences remains largely unexplored in a coordinated manner. This award will support the Quantum Technologies for the Geosciences workshop, which will examine how Quantum Information Science (QIS) could transform Geoscience research by offering new ways to address some of the complex computational and observational challenges in Earth system science. By identifying pathways to integrate QIS into geoscience research, this workshop supports the National Quantum Initiative and acceleration of quantum research and development for the economic and national security of the United States.

Quantum Technologies for the Geosciences workshop will bring together experts in QIS and Geosciences to identify high impact opportunities at the intersection of these fields. Experts in quantum computing, quantum sensing, atmospheric science, oceanography, geophysics, and Earth system modeling will assess the transformative potential of quantum technologies for the geosciences. By connecting researchers from traditionally separate fields, the workshop aims to catalyze new interdisciplinary collaborations and identify research areas grounded in both quantum technological feasibility and high-impact geoscientific questions. The resulting roadmap will help identify research priorities at the intersection of QIS and Geosciences, aligning foundational advances in quantum technology with pressing challenges in Earth system science. Outcomes from the workshop will be broadly disseminated through a publicly available workshop report.